Relaxation Studies on Glassy Polymers

This research deals with computer simulations designed to elucidate the nature of the dynamics in isolated polymer solutions and polymer melts. The grant is a continuation of work previously carried out by the principal investigator at Washington University.